A JILA Initiative in Theoretical Atomic, Molecular, and Optical Physics

9421859 Greene This grant supports the JILA Center for Atomic, Molecular and Optical Theory. The goal is to strengthen the status of atomic, molecular and optical theory in the US by supporting a new faculty member whose research is devoted to atomic, molecular or optical theory, a named postdoctoral fellowship program and a series of topical workshops on critical problems in the area of atomic, molecular and optical physics. ***